Student Travel Grant to Attend IEEE Secon 2008

National Science Foundation
CISE/CNS

Abstract

Proposal Number: 0813561
PI: Romit Roy Choudhury
Institution: National Science Foundation

Title: Student Travel Grant to Attend IEEE Secon 2008

Abstract:

The purpose of this grant is to support graduate students towards traveling and attending the 5th IEEE SECON 2008 conference. IEEE SECON is a conference that serves as a meeting point of researchers from academia and industry, as well as practitioners in diverse fields of computer networking. Travel grant opportunities will allow students to participate in this forum, and gain valuable experiences by interacting with senior researchers in this field. Such interactions can positively influence the quality of the students' individual research, in turn shaping the future of wireless networking technology.